Electrochemistry Equipment for the Undergraduate Laboratories

9451102 West Acquisition of the electrochemical station will allow an expansion and upgrading of the chemistry instructional program. This proposal requests modern electrochemistry equipment for use in the following undergraduate laboratories: Quantitative Analysis, Instrumental Techniques, Thermodynamics, Kinetics, and Independent Study. The instrument will be used to determine vitamin C, lead, and/or cadmium in student-provided samples in quantitative analysis. We view this instrument as a tool to stimulate, excite and draw bright students into careers in science. In Instrumental Techniques, the electrochemistry equipment will be used to demonstrate how cyclic voltammetry can be used both quantitatively to determine an unknown concentration of acetaminophen in a Tylenol tablet, and qualitatively to obtain mechanistic information on the oxidation of the drug. In the Thermodynamics Lab, it will be used to determine thermodynamic properties and their relationship to structural change, pH, solvent composition, and temperature. In the Kinetics Lab, it will be used to study the kinetics of many different reactions, for example the oxidation of benzoin. As time is available outside of the formal courses, the instrument will be used by students doing various independent research projects.